Collaborative Research: Studies of Magnetospheric and Ionospheric Dynamics Using the Magnetometer Array for Cusp and Cleft Studies (MACCS)

This award would continue the operations of the Magnetometer Array for Cusp and Cleft
Studies (MACCS) network combined with the dissemination of its data and the scientific
analysis of MACCS data in collaboration with other ground-based and space-based research
teams. MACCS is a longitudinal array of high latitude fluxgate magnetometers covering the
Eastern Canadian Arctic at high latitudes(75-85N), providing continuity of spatial
coverage between existing Canadian and Greenland arrays. MACCS has contributed to the
study of ULF waves and transients at these extreme latitudes as well as large
cooperative studies of magnetosphere-ionosphere coupling, ionospheric convection,
and magnetic storm and substorm processes. The combination of the location of several
MACCS stations under the field of view of the SuperDARN / PolarDARN radar network,
their proximity to the field of view of the AMISR radar system at Resolute Bay, Canada,
and the nominal "conjugacy" of four MACCS stations with U. S. Antarctic stations
as well as the recent addition of dual high-sampling-rate GPS TEC receivers makes possible
additional comparative studies that would be quite rich in possible transformative
outcomes. Each MACCS site transmits data in near real time (two through Iridium, six through
the local wireless internet. The MACCS array has provided ground-based magnetic field
observations that will continue to play a fundamental role in magnetospheric and ionospheric
research and will continue to provide critical data for studies of various geospace
phenomena including solar wind-magnetosphere and magnetosphere-ionosphere interactions,
the dynamics of the high latitude polar cap regions of the magnetosphere, and
geomagnetic storms and substorms.

The scientific analysis of MACCS data would focus on the topics such as the detailed studies of
high-latitude ULF waves, using multi-instrument ground-based and satellite data from the
Van Allen Probes and SWARM and studies of the role of ULF waves in energizing or depleting
radiation belt electrons during magnetic storms. Theoretical studies and modeling
studies (using the Space Weather Modeling Framework) of the excitation and propagation
of ULF waves through the global magnetosphere-ionosphere system, and exploring the
physical mechanisms involved would be particular aspects of the science issues covered
in this award.